RET Site: Research Experience for Teachers in Areas of Innovative and Novel Technologies in Philadelphia [RETAIN Technologies in Philadelphia]

This award provides funding for a three year continuing award to support a Research Experiences for Teachers (RET) Site, at Drexel University, entitled, "Research Experience for Teachers in Areas of Innovative and Novel Technologies in Philadelphia (RETAIN Technologies in Philadelphia). The program will provide a five-week summer research experience for eighteen urban middle and/or high school science teachers from the Philadelphia school systems and Camden County, New Jersey.